Development of EB/TOF Mass Spectrometer with CID and SID Capabilities

This award from the Academic Research Infrastructure (ARI) Program will assist the Department of Chemistry at the University of Arizona acquire a hybrid mass spectrometer (MS) with an electric sector (E)-magnetic sector(B)/curved field reflection time-of-flight (TOF) geometry. This equipment will enhance research in a number of areas including the following: (1) design and synthesis of a variety of biologically active linear and cyclic peptides, pseudopeptides, peptidomimetics and complex peptide libraries (2) structure/physical property/reactivity relationships in hemes and heme proteins (3) studies of the enzyme and compounds that mimic features of the molybdenum and heme centers of the enzyme (4) synthesis and characterization of new organic compounds (5) synthesis of carbohydrate based natural product analogs and the development of novel carbohydrate based materials (6) design and synthesis of novel amphiphilic molecules that form organized assemblies upon solvation (7) novel organic snthesis methodology to synthesis of novel materials, and (8) mechanism of lipid transport in insects. Mass spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules. The addition of the technique of electrospray extends the range of MS to proteins and nucleic acid molecular weights far beyond any other technique. The use of electrospray ionization in combination with high resolution provides the latest techniques available in mass spectrometry. It affords the chemist one of the most powerful tools available for the characterization of compounds. The acquisition of this capability in mass spectrometry is essential for the prosecution of frontier research in many fields of chemistry.